Functional Genomics of Maize Centromeres

Centromeres are large chromosome domains that organize and regulate chromosome
movement. They contain thousands of simple repeated sequences and hundreds of
RNA-based transposable elements, all of which are difficult to sequence and manipulate in the
laboratory. Despite these challenges, mammalian centromeric DNA has been exploited to create
'artificial chromosomes' that can carry long segments of engineered DNA. Artificial chromosomes
could also have widespread applications in agriculture. For instance, entire biochemical
pathways or multiple disease resistances could be introduced simultaneously. The experiments
carried out under this award will fill major gaps in our understanding of plant centromeres and build
the foundation for creating artificial chromosomes in maize and rice. The resulting
information will be distributed through online resources and published articles that are readily available
in the public domain.

To expand training opportunities in plant genetics, two new programs will be initiated.
One will combine existing on-campus minority involvement programs and establish a
plant biology genomics focus at the University of Georgia. Hands-on training in plant
cytogenetics will also be offered through an Annual Cytogenetics Training Workshop (ACTW) at the
University of Wisconsin. The ACTW will provide training in fluorescent in situ
hybridization,immunolocalization, chromatin immunoprecipitation, and other advanced techniques
necessary for chromosome-based research.